CISE Research Infrastructure: Infrastructure for Research in Collaboration Systems

9624662 Weiss, Stephen Dewan, Prasun University of North Carolina @ Chapel Hill CISE Research Infrastructure: Infrastructure for Research in Collaboration Systems This award is to support an established, on-going program of research in distributed, collaborative, and multimedia systems. The infrastructure will enable new basic research in system support for distributed collaboration. Projects include: Multimedia Networking, Hypermedia Systems, Application-Sharing, Collaborative Virtual Environments, and Interoperable Collaborative Environments. In addition, researchers at the University of North Carolina will also work with a group of forensic pathologist, located at the Armed Forces Institute of Pathology to build a digital library of `pattern-injuries` containing text, images, audio/video sequences, charts, diagrams, and numerical data. This testbed will enable groups of forensic pathologist to consult a large repository of case data as well as consult with one another, and jointly create new cases using conferencing and collaboration tools.